The Fifth International Association for Mathematics and Computers in Simulation International Conference on Nonlinear Evolution Equations and Wave Phenomena: Theory and Computation

Georgia, April 16-19, 2007.

The conference is organized by the International Association for Mathematics and Computation in Simulation (IMACS). It is the fifth in a series of conferences held every other year. The last conference was held at the University of Georgia in June 2005. The program will consist of invited lectures and contributed talks. A tutorial will precede the conference. This year the topic of the conference is Nonlinear Evolution Equations and Wave Phenomena, with applications in optical fiber communication systems. A website for the conference Proposal: 0631857
Principal Investigator: Taha, Thiab R.
Institution: University of Georgia Research Foundation Inc
Proposal Title: The Fifth IMACS International Conference on Nonlinear Evolution Equations and Wave Phenomena: Theory and Computation

ABSTRACT

This award will fund travel and local expenses of four invited speakers and 14 students and postdocs to attend the Fifth IMACS International Conference on Nonlinear Evolution Equations and Wave Phenomena, to be held at the University of can be accessed from the IMACS web page, http://www.imacs-online.org.